TC: Small: Collaborative Research: Trustworthy Hardware from Certified Behavioral Synthesis

Electronic System Level ( ESL ) designs , specified behaviorally using
high-level languages such as SystemC , raise the level of hardware
design abstraction . This approach crucially depends on behavioral
synthesis , which compiles ESL designs to Register Transfer Level ( RTL )
designs . However , optimizations performed by synthesis tools make
their implementation error-prone , undermining the trustworthiness of
synthesized hardware .

This research develops a mechanized infrastructure for certifying
hardware designs generated by behavioral synthesis . It entails
developing a certified " reference flow " of synthesis transformations .
The reference flow is disentangled from the workings of a production
synthesis tool through new formal structure called " clocked control
data flow graph " ( CCDFG ) formalizing internal design representation .
Given an ESL design and its synthesized RTL , certification entails the
following automatic steps : ( 1 ) extracting initial CCDFG ; ( 2 ) applying
certified " primitive transformations " from the reference flow ,
following the application sequence by the synthesis tool , and ( 3 )
checking equivalence between the transformed CCDFG and RTL . Theorem
proving is used to certify primitive transformations off-line ;
equivalence checking accounts for low-level transformations and
manual tweaks . The correspondence between the transformed CCDFG and
the synthesized hardware makes equivalence checking efficient .

The project facilitates development of scalable and trustworthy
hardware : adoption of ESL approach expedites design cycle while formal
analysis guarantees trust in the synthesized hardware . The reference
flow makes explicit key design invariants implicitly assumed by
synthesis tools , facilitating development of more aggressive synthesis
tools . Finally , the tight integration of two complementary techniques
--- model checking and theorem proving --- in the certification is
applicable to other domains .